PostDoctoral Research Fellowship

This award is made as part of the FY 2020 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Elizabeth O'Reilly is "High dimensional stochastic geometry with applications to data science." The host institution for the fellowship is California Institute of Technology, and the sponsoring scientist is Joel Tropp.